A U.S.-New Zealand Cooperative Study of Contractible Edges in 3-Connected Graphs (Geometry)

This award will support a one-year collaborative project between Professor Robert L. Hemminger, Department of Mathematics, Vanderbilt University, and Professors Derek Holton and R.E.L. Aldred, Department of Mathematics and Statistics, University of Otago, Dunedin, New Zealand. The activity takes place under the U.S.-New Zealand Cooperative Science Program. The cooperating mathematicians will carry out joint research in various aspects of graph theory. The subject matter will primarily include (1) the distribution of contractible edges and (2) the neighborhood connectivity of graphs. These are important areas of study in modern graph theory, and Professor Hemminger and his New Zealand colleagues are respected researchers in the field. Their previous collaboration has been productive, and the current studies will build upon and expand their earlier results.